Cohomology and Representation Theory: Reductive Algebraic Groups and Related Structures

The principal investigator will investigate problems
involving the representation theory of reductive algebraic
groups. The structures related to reductive groups include
Lie algebras, Chevalley groups, Weyl groups and centralizer
algebras. The methods and constructions involved in the study will be
algebraic as well as geometric. The underlying theme will be
to establish connections between the cohomology and representations
of the objects in order to prove new and interesting results
about these structures. Establishing such relationships also
lends itself to providing concrete calculations.

The algebraic objects known as "groups," "rings" and "Lie algebras"
arise in many different physical applications in biology,
chemistry and physics. These algebraic objects
in general have complex internal structures and symmetries.
Extracting information about these structures can provide
vital information which can be used in a range of applications
such as those mentioned above. This project is in the area
of representation theory, which is now a central area of
mathematics because it provides a systematic method for studying
complicated algebraic structures. Roughly speaking, representations
can be thought of as ``snapshots'' of some algebraic object from
different viewing angles. These snapshots are provided via
explicitly described matrices. By putting together
the information from the representations, many questions
surrounding these complicated algebraic systems can be answered.